International Research Fellowship Program: The Biogeography of Tarsiers

0107277
Shekelle
The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty-four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad.

This award will provide twenty-four months of support to Dr. Myron Shekelle to work with Dr. Jatna Supriatna at the University of Indonesia in Depok, Indonesia.

This project is a study of the number of species and their distribution of tarsiers (small bodied, nocturnal primates), using genetic and acoustic data. The PI will coordinate activities between Columbia University and the University of Indonesia to study the biogeography of all Sulawesi vertebrates and map regions of genetic endemism - with implications for conservation.

Dr. Supriatna is Director of the Center for the Study of Biodiversity and Conservation. He is also the in-country program manager for Conservation International.